Theorem Proving in Paraconsistent Logics

There is currently no way for knowledge based reasoning systems to handle inconsistent information, although inconsistent information arises in many important application such as medical diagnosis and other expert systems. Most often during the construction of a knowledge based system, if the knowledge engineer is presented with information, which may come from a number of sources, that is inconsistent, the knowledge engineer simply chooses, sometimes incorrectly, to discard certain piecesof information that have been identified as the cause of the inconsistency. The consequence of such a practice may be disastrous since first of all the engineer may be throwing away important information and secondly, in may instances, the existence of inconsistent knowledge may itself convey important information. However, since most reasoning systems are based onclassical two valued logic, they have no way to correctly handle inconsistent information. A class of logics call annotated logics has been proposed by several researchers as an alternative model or reasoning that allows for inconsistencies. These logicshave been shown to provide nice, theoretical foundations to a variety of formalism in computer science. This work will study the use of annotated logics as a practical computational model. It will implement annotated logic systems that can serve as an environment in which knowledge based containing inconsistencies can be built and in which inferences can be computed. This work should provide a nice bridge across the gap that currently exists between the theory and the practical utility of annotate logics, and provide a reasoning basis for many important practical applications.